STTR Phase I: Quantitative Self-Reporting Arrays for Micro RNA (miRNA) Profiling

This Small Technology Transfer Research (STTR) Phase I project aims to develop a microarray platform for micro-RNA profiling. The project will address the parameters that are required for optimal probe design and hybridization. Further, the project will design and test a microarray to profile miRNA and to selectively discriminate between such miRNAs in a quantitative manner.

The ability to rapidly monitor micro RNA expression profiles will provide a tool for diagnosis of cancer, disease and other cellular biological activities for therapeutic drug discovery and diagnostics.